Mathematical Sciences: SIAM Interdiciplinary Conference in Applied Mathematics

SIAM Interdisciplinary Conferences in Applied Mathematics This project is a series of Interdisciplinary Conference in Applied Mathematics conducted by the Society for Industrial and Applied Mathematics (SIAM). The conferences are designed to bring together mathematicians, engineers, and scientists who are developing and applying new mathematical concepts, methods, and algorithms. An important feature of this series is the inclusion of focused, interdisciplinary, academic/industry workshops in which mathematical and computational scientists from academia can interact with mathematicians, computational scientists, engineers, and scientists in industry on specific areas and problems of interest to industry. The primary objective of the conferences is to initiate new interaction among the creators and users of mathematics and thereby contribute to the understanding of mathematics and encourage its application to problems of society. A second objective is to encourage the participation of students, women, and minority groups in this interaction.